Purchase of an EPR Spectrometer for Inorganic Chemistry Research

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will allow the Chemistry Department at Tufts University to purchase an electron paramagnetic resonance (EPR) spectrometer. Junior faculty Elena V. Rybak-Akimova will be the primary user of this instrument, which will facilitate her studies on transition metal coordination chemistry and the design of selective redox reagents and catalysts. In addition, she will investigate magnetically coupled materials; five-coordinate species with a vacant site at the metal ion; and molecular tweezers.

An electron paramagnetic resonance spectrometer is an instrument used to obtain information about the molecular and electronic structure of molecules. It may also be used to obtain information about the lifetimes of free radicals which are often essential for the initiation of tumor growth and/or a variety of chemical reactions.